Travel Support to the XIth Moriond Workshop on Tests of Fundamental Laws in Physics; Les Arcs, Savoie, France; January 25 - February 1, 1992

This action will provide request funds to cover conference fees and living expenses for about 10 U.S. scientists to participate in the Moriond workshop on Tests of Fundamental Laws of Physics taking place in Les Arcs 1700, France, January 25 - February 1, 1992.